Integration of Genomics into the Undergraduate Curriculum

Biological Sciences (61) This project integrates the undergraduate biology curriculum with a series of self-contained modules on genomics. The modules are portable to a variety of courses ranging from general education courses in science to introductory and advanced courses for majors. The design of the modules focuses on investigative science as a tool to teach critical thinking and problem solving as well as to inform students about the field of genomics and the great influence it is beginning to have on their lives. The five modules being produced include: sequence analysis of homologous genes; analysis of human microsatellites; sequencing of a model genome; sequence analysis of expressed sequence tags; and computational analysis of nucleic acid and protein sequences.